Conference: ICM 2026 Satellite Conference on Moduli of Galois Representations and the p-adic Local Langlands Correspondence

This award supports participation at 2026 ICM Satellite Conference on Moduli of Galois Representations and the p-adic Local Langlands Correspondence, a research conference in mathematics that will be hosted by the University of Utah Department of Mathematics the week of August 10-14, 2026. It will provide a unique training opportunity for US mathematicians by bringing together leading experts in several rapidly-developing areas of number theory to describe the newest advances in the field. In addition to traditional research talks, the conference will feature lightning talks and poster sessions for early-career participants to share their research, and will be accompanied by a series of online survey lectures to prepare attending graduate students before the conference begins.

More precisely, this research conference will focus on recent advances in modularity, moduli of Galois representations and L-parameters, the categorification of the Langlands correspondence, the p-adic local Langlands correspondence, the cohomology of Shimura varieties, and other nearby topics in number theory and arithmetic geometry. In recent years, these areas have seen enormous advances and conceptual reformulations based on new tools such as the Emerton-Gee stack and categorical local Langlands, bringing within reach central problems and questions that were previously inaccessible. The conference program will communicate some of the most exciting recent developments in these areas, with an emphasis on those topics that are ripe for future work by the next generation of US mathematicians. The conference website is available at: http://math.utah.edu/~howe/australian-direction.html